Quantifying the drivers of midwater zooplankton community structure

Processes in the midwater region below 200 m depth, also known as the twilight zone, represent a major unknown for the biology and chemistry of the ocean. Studies of animals drifting in the oceans, known as zooplankton, are scarce due to the difficulty and associated time and costs of sampling deep waters. The advent of automated image analysis and genetic tools is leading to a rapid increase in our knowledge of the diversity, abundances and size distribution of communities in shallow waters. However, our understanding of the deeper layers of the ocean is still in its infancy, and there are few studies that combine these three facets of the ecology of the zooplankton. The objective of this project is to leverage existing samples, obtained from previously NSF-funded research in the North Pacific and North Atlantic, to study how the abundances, diversity, and size distribution of zooplankton in the midwater vary with latitude and environmental factors. Automated image analyses provide information on abundance and size, and genetic analyses give unprecedented data on the diversity of the midwater community for the North Atlantic and the North Pacific, from subtropical to subarctic environments. This project provides high quality hands-on training opportunities for at least two undergraduate researchers and generates material for undergraduate and graduate courses. Two workshops train educators on the classroom use of the NSF-funded Biological and Chemical Oceanography Data Management Office (BCO-DMO) open access oceanographic data.

Recent advances in image analysis and metabarcoding of zooplankton communities via new data tools are an opportunity to generate quantitative and predictive relationships between environmental drivers and zooplankton diversity, abundances and size distribution. While this information is available for plankton in epipelagic regions, the focus of this study is on midwater communities, which remain poorly characterized. Obtaining these data is the first step towards a quantitative analysis that assesses the impact of the midwater community on biogeochemical cycles. The project uses archived samples from two cruises conducted in the N. Atlantic and N. Pacific to test hypotheses about how temperature, midwater hypoxia, primary productivity and biogeographic province shape the size class structure, biodiversity and behavior (diurnal vertical migration) of zooplankton communities. These newly-generated image and metabarcoding datasets of the mesozooplankton community from 0-1000 m are cross-comparable with other ocean regions. These data describe how migratory and midwater resident zooplankton communities are structured by environmental variables and demonstrate how this influences their biogeochemical contributions (specifically active flux and midwater attenuation of flux). Data tools generated for the image analysis in combination with metabarcoding has broad application in plankton ecology and allows metanalysis of other datasets. The project is complementary to ongoing national and international projects that seek to describe the function and structure of the midwater. In contrast to existing modeling and process projects, this project covers a moderately large geographic area and thus provides a strong comparative foundation for broader community-wide assessment of the function of zooplankton in the twilight zone.